UMEB: Human Impacts on Ecosystems of the Colorado Plateau

0080156
Drickamer

Northern Arizona University is combining ongoing Colorado Plateau research
initiatives and a diverse student population to create an Undergraduate
Mentoring in Environmental Biology program. Seventeen faculty mentors are
committed to work with seven community collaborators to recruit, train and
promote talented students for careers in environmental biology. Strong
emphasis is placed on recruitment of Native Americans and Hispanic
Americans. Selected students gain support and training through stipends,
coursework, advising and mentoring. This program provides students
opportunities to participate in cutting-edge research related to human
impacts on ecosystems of the Colorado Plateau. Students work closely with
faculty mentors to pose hypotheses, design experiments, complete research
projects, and disseminate results thorough oral presentations and published
works. Cohorts of UMEB seniors share their training with incoming cohorts
and also act as mentors themselves to high school students involved in the
GLOBE program and other NAU outreach activities.

What are the impacts of climate change on the carbon balance of Colorado
Plateau ecosystems? How does livestock management influence productivity
and diversity of Southwestern grasslands? Do mycorrhizae function
differently in traditional Native American maize and high-input maize?
Research on these questions and many more are being advanced by UMEB
students and their faculty mentors. Another important outcome of this
program is that it increases the number of Native American and Hispanic
American environmental biologists. These professionals will be particularly well
qualified to contribute expertise towards ameliorating many of the complex
environmental problems on the Colorado Plateau and throughout the nation.